Travel to attend: Fourth Symposium on Catalyst Deactivation Antwerp, Belgium, Sept. 28-Oct. 1, 1987

Travel support is provided to the keynote speaker for the 4thInternational Symposium on Catalyst Deactivation to be held inAntwerp, Belgium, September 28. October 1, 1987